Building Diversity in the Technical and Scientific Leadership of America

HRD 03-28641
The Center for the Advancement of Hispanics in Science and Engineering Education (CAHSEE) is nominated for the 2003 Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) for its significant achievement in the mentoring of more than 1,000 Hispanic and other underrepresented minority students in the fields of science, mathematics, and engineering.